Hidden Taxonomic Diversity in European Chrysoperla Green Lacewings

Green lacewings are beneficial predatory insects that eat aphids, scales, and other serious pests of crop plants. They are often raised artificially for mass release in agricultural areas where they can serve as important agents of biological control. Henry et. al. have found that several distinct North American species of green lacewings exist which can be told apart only by their unique courtship songs. Similar-looking lacewings are found in Europe, but these have songs that differ greatly from North American ones and vary from region to region. In the past, all of these European and North American lacewings have been thought of interchangeably as a single species, Chrysoperla carnea, and have been freely exported and imported across the Atlantic for biological control purposes. However, since different species can show strong prey preferences and other individualistic behaviors, it is feasible that some mass reared and released green lacewings might be relatively ineffective against certain targeted pest species. Efforts at biological control should be enhanced by recognizing the hidden biodiversity within this lacewing species complex and beginning to use the most appropriate "song species" in each continent, area or habitat. %%% This project will investigate the hidden species diversity in European green lacewings using song analysis, just as has been done for the North American ones. Thus, the investigators will determine how many true species exist in this economically important insect group and which are appropriate for use in biological pest control programs in different areas of the world. Perhaps, even more importantly, this project will serve as a model of the importance of song or other behavioral traits in investigating biodiversity in insects and other groups of organisms.